Horizons Exploration Program - Years VII and VIII

*** 9552888 Austin The University of Maryland Blatimore County (UMBC) will initiate a six-week, summer residential, Young Scholars project with follow-up activities during the academic year for 50 students entering grade 9. The students will engage in classroom lectures and discussions, science research, technical writing, field trips, and hands-on laboratory activities in biology and chemistry. Follow-up support throughout the high school career will provide continued contact with University of Maryland Baltimore County (UMBC) research scientists. ***